U.S.-Italy Dissertation Enhancement Research: Low Power Haptics Devices for Portable and Hand-Held Devices

0104542
Hannaford

This one-year award will support a dissertation enhancement project of Greg Lee, a student in the Biorobotics Lab of the Electrical Engineering Department at the University of Washington. He will work with Prof. Paolo Dario at the ARTS/MITEC Laboratory at the Scuola Superiore Santa Anna, in Pisa, Italy. The objective of Mr. Lee's research is to incorporate MEMS techniques into his research on low power haptics. Mr. Lee will benefit from studying biorobotic MEMS technology being developed at the ARTS/MITEC laboratory, which is unique in its integration of MEMS with biorobotics. interface. While at ARTS/MITEC, Mr. Lee will offer seminars in real-time embedded Windows CE networked control systems.